A Low-cost, Continuous On-line Organic Content Monitor for Water Quality Determination

The objective of this project is to determine the feasibility of developing an instrument for rapid, on-line determination of the organic content of water. The concept being investigated involves a process by which organic compounds are converted to volatile substances which are stripped from water solution and catalytically oxidized. The temperature rise by release of the heat of combustion is proportional to the amount of organic matter originally present. The proposal leading to this Phase I award was submitted in response to the Small Business Innovation Research Program Solicitation, NSF 89-30. The project proposes to develop a concept that can be used to continuously monitor the organic content of water and wastewater from municipal and industrial sources in contrast to current methods that rely on costly instruments that require frequent maintenance and operation by highly skilled technicians for discrete samples.